Frontiers of Statistical Research: Forty Years of Statistics at Texas A&M University

Proposal ID: 0226201
PI: Thomas Wehrly
Title: Frontiers of statistical research: Forty years of statistics at Texas A&M University

Abstract:

This research conference, in recognition of the 40th anniversary of the Department of Statistics at Texas A&M University, brings together leading researchers in four theme areas of great current interest in statistical research: 1) Linear models and their generalizations, 2) bioinformatics and statistical genetics, 3) time series analysis, and 4) smoothing. The meeting features cutting edge presentations in these areas, stimulates cross-fertilization, and pays especial attention to the interaction of new researchers and students with established researchers. The conference offers a number of ways through which new researchers can participate, including poster sessions, roundtable discussions, and discussion sessions following the talks.